Digital Signal Processing Laboratory for Real Time Applications

This project reflects the importance of Digital Signal Processing (DSP) in the analysis of important engineering problems and developing effective solutions with DSP hardware and software tools. This project is modifying the overall curriculum to ensure that DSP methods are introduced in the junior year for electrical engineering students. The ECE curriculum had placed a primary emphasis on analog signal processing, including communications, control systems, electronic circuits, and analog filter design. Due to the limited availability of DSP facilities, ad hoc DSP projects had been assigned to students who work under the supervision of senior staff. There are about 100,000 professionals in the metropolitan Detroit area, employed primarily in the automobile and related industries, and the school is strategically located to allow for innovative curriculum development to benefit both local and national industries. The project has an interdisciplinary thrust that provides all engineering students with an opportunity to learn the theory and practice of DSP techniques. This is ensured through the creation of two new undergraduate courses, which include innovative experiments and projects that emphasize both theoretical and practical aspects of DSP are proposed. Also, graphical tools are used to teach the basic concepts of DSP more effectively. Further, the DSP laboratory and capstone design course provides students with practical skills in applying DSP software and hardware tools for solving real-world problems. The DSP laboratory operates cooperatively with the Vehicular Electronics Design Laboratory (VEDL) has been developed as part of the strategic plan of the School of Engineering. Both undergraduate students and practicing benefit engineers from industry (through the continuing education program) benefit from the establishment of the laboratory.